Center for the Development of an Integrated Protein and Nucleic Acid Biotechnology

This proposal from the California Institute of Technology (Caltech), in cooperation with the Jet Propulsion Laboratory (JPL), requests funds to establish a Science and Technology Center for the Development of An Integrated Protein and Nucleic Acid Biotechnology. The Director of the Center will be Professor Leroy Hood. The Center will implement an analytical approach to the computer- assisted analysis of patterns of protein expression using two- dimensional (2-D) gel electrophoresis, and will characterize the molecular structure of the observed proteins by developing methods for sequence analysis of the proteins obtained directly from the 2-D gels. The qualitative and quantitative information from the 2-D gel patterns along with the molecular sequence data will be combined in a new form of protein data base. This will allow the rigorous comparison of results obtained in one laboratory with those obtained in any other. The Center will also extend the techniques available for rapid cloning and sequence analysis of the corresponding genes, and will develop novel algorithms and state-of-the-art hardware for thorough comparison of the resulting data with extant data in protein and DNA sequence data bases. One of the key problems in molecular biology is understanding how individual genes are turned on and off in appropriate tissues at the correct developmental stage, and how the coordinated expression of particular batteries of genes in individual cells gives these cells their unique characteristics. Hence, one of the fundamental problems in developmental biology relates to following the qualitative and quantitative changes that occur in the expression of hundreds of proteins. This translates into the need for rapid identification, cloning, and sequencing of the individual genes and gene batteries responsible for directing this complex pattern. The development and implementation of the integrated technologies and new instrumentation for the characterization of proteins and nucleic acids, as described above, will change the course of modern biological research on these and other fundamental biological problems.